Analytical and Preparative Biochemical Equipment

The objective of this application is to replace inoperative equipment and to upgrade obsolescent equipment of the shared instrumentation facility of the department. Each of the investigators on this application is involved in the preparation of pure proteins and nucleic acids and the study of their properties, structure, and function. These purifications require both low and high speed centrifugations. Most also involve the separation of complex mixtures of biomolecules into pure constituents. Recent technological innovations have made such separations much faster and simpler. To this end, we are requesting a perfusion chromatography apparatus with suitable detectors. Many of the activity measurements and most of the sequencing reactions involve radioactive assays. To this end, we are requesting a scintillation counter. All instruments will be used on a shared basis. Experience shows this to be the most cost-effective way to use modern instrumentation. Individual users will contribute to the maintenance contracts of these instruments once the warranties expire. The sharing of maintenance contracts is also the most cost-effective way of using the equipment.